SBIR Phase I: High Conductivity Photoprintable Conducting Polymers for Polymeric Electronics

This Small Business Innovation Research (SBIR) Phase I project will develop printable conducting polymers
that can be used to produce polymeric electronic devices. The printable conducting polymers
envisioned are initially soluble and become insoluble and spatially fixed after exposure to ultraviolet
light, thus a positive resist of the conducting polymer material can be produced with standard printing
processes. This Phase I project will build on the soluble conducting polymer technology, and add the ability to form positive resists for polymeric electronics. Conducting polymers with a conductivity of 10 to 300 S/cm that can be printed into electronic components for flat panel displays and organic electronics will be developed. This proposal addressed the need to fabricate large area devices, such as displays, by a room temperature printing process.

Commercial applications include conducting components of polymeric displays including flexible
display electrodes and addressing lines, hole injection layers, and printed wiring boards, other
flexible or non-flexible polymeric electronic chips, EMI shielding and antistatic coatings.